Experimental Studies of Quark Interactions

This award will provide support to a group from Southeastern Massachusetts University, who is working on an experiment (E850) at Brookhaven National Laboratory, designed to improve our understanding of the structure of hadrons and the nature of the dynamics of their interactions at short distances. The experimental method is based on observing two- body elastic scattering and production processes, when they occur at 90o in the center of mass. This experiment will test Quantum Chromodynamics (QCD) by establishing the limits of validity of perturbative methods in QCD and achieving some understanding of the nature of the non-pertubative contributions.